On-Campus Discoveries in Science: A Science Preparation Program in Biotechnology in Support of New York City Teachers and Students

Kingsborough Community College and Brooklyn College collaboratively promote biotechnology education in New York City through 1) basic and advanced Summer Institutes in which middle and high school science teachers expand their knowledge of biotechnology and ability to engage students; 2) development of a graduate course in teaching biotechnology in which pre-service teachers focus on real-world learning; 3) opportunities for middle and high school students to perform experiments in a college laboratory and in their own schools via a new lending laboratory; and 4) creation and implementation of embedded virtual enterprise simulations in which college biotechnology majors improve their workforce skills. Activities are guided by input from biotechnology industry representatives. Improvements in skills, knowledge and attitudes are evaluated. The project's methodology and outcomes are disseminated through local and national conferences, articles, an on-line e-community, and a capstone conference.